Glycolytic Enzyme Dynamics in Living Cells

9506959 Pagliaro Much of the understanding of cellular organization and function has evolved in the conceptual framework of studying the structure of fixed cells and biochemical processes in dilute solution. These approaches have been extremely valuable in elucidating the microanatomy and biochemical function of cells and their organelles, but the spatial and temporal dynamics of many cellular processes remain poorly understood. In large part, this is due to the spatial averaging inherent in many biochemical approaches and the loss of temporal resolution in ultrastructural studies requiring chemical fixation. Fluorescent probe and optical microscope techniques developed over the past decade have made it possible to study an increasing number of molecular and biochemical processes in living cells. These techniques are now adopted to characterize the organization of a ubiquitous metabolic pathway, glycolysis, in living cell. The glycolytic enzymes aldolase, phophofructokinase (PFK), glyceraldehyde 3-phosphate dehydrogenase (GAPDH), and triose phosphate isomerase (TPI) interact with each other and/or structural proteins in vitro, and a variety of specific reagents are now used to study their behavior, organization and dynamics in vivo in living mammalian fibroblasts. The intracellular distribution and motility of each of these enzymes is compared, and the interactions among these enzymes in vitro and in vivo is characterized extensively. The glycolytic enzyme enolase lacks specific interactions in vitro and in vivo, and we will use enolase as a reference molecule in our experiments. Aldolase is concentrated in a microdomain around F-actin stress fibers in fibroblasts, and a fraction of the enzyme is bound in vivo. This finding is inconsistent with the textbook description of glycolysis occurring as a series of fully solvated, diffusion limited reactions in the cytoplasm, and consistent with a growing number of models for organized glycolytic metabolism. Recent work from several laboratories has led to the identification of a putative domain for actin-interaction on the aldolase molecule, based on biochemical and molecular genetic studies of aldolase interactions in vitro. Site- directed mutants of rabbit muscle aldolase are used to study the effect of specific mutations on aldolase dynamics in vivo; mutants of aldolase catalytic activity and actin- binding activity have been obtained and characterized. There is also evidence that PFK and GAPDH bind to F-actin and may interact with aldolase in vitro. The distribution and mobility of these enzymes in vivo is mapped using ratio imaging. The study is part of and reflects the interdisciplinary approach taken by the lab, with substantial biochemical characterization of reagents prior to their use in vivo; electron microscopy, falling ball viscometry, fluorescence photobleaching, and fluorescence energy transfer measurements to quantify enzyme/actin interaction in vitro; and microinjection, fluorescence imaging, fluorescence photobleaching, and fluorescence energy transfer experiments in vivo. Better understanding of the organization of this important and ubiquitous metabolic pathway allows better understanding of the cytoplasm, and how biochemical reactions in cytoplasm are organized and regulated. %%% After the discovery of the particle responsible in a large way for cellular energy metabolism of the cell, the mitochondrion, a search was undertaken for a particle responsible for the other component of energy metabolism, the breakdown of sugars, a process called glycolysis. No membrane-bound compartment was identified for this process, so the general conclusion was that the enzymes reponsible for glycolysis function in a solvated state. With that assumption, much of the chemistry of glycolysis has been done completely in vitro, after the cells have been homogenized, extracted and the individual enzymes purified. This project approaches the nature of glycolysi s differently, because it now appears likely that this conclusion is in part, wrong. Work in progress indicates that some of the glycolytic enzymes act, to some extent, within a particulate microdomain where they can be associated with each other and with the cytoskeleton. This work identifies the extent of association by studying the movement and mutual proximity of labeled "tags" for the enzymes or their associative partners by means of advanced fluorescence microscopy and imaging approaches. The advantage of the imaging approaches is that the process can be understood in vivo; the cell and its components will not be disturbed. The behavior of the enzymes, aldolase, enolase, phosphofructokinase, glyceraldehyde 3-phosphate dehydrogenase, and triosephosphate isomerase, and their relationship to the cytoskeletal protein, F-actin, will be studied in vivo. Labeled fluorescent forms are microinjected and their behavior studied through ratio imaging, a process whereby the optical problems created by the in vivo situation can be largely corrected. The results will have a large impact on the understanding of how the cell organizes not only glycolysis, but other multi- enzymatic pathways which are coordinately active in the cell. ***